Engineering Research Equipment: Laboratory Equipment for Applied Electromechanics Research

This is a Research Equipment Grant in the area of power electronics. The work which will be impacted by the grant is in the modelling, design, and control of brushless motor drive systems. The specific project relates to the real time digital control of a brushless machine. It is expected that the equipment will permit an improved actuation method for torque control based on integral manifold techniques. The digital equipment permits capability for digital measurement of torque, and inductance as well as electrical states.